Collaborative Research: Engaged Student Learning - Design and Development Level II: Using a Cyberlearning Environment to Improve Student Learning and Engagement in Software Courses

Due to the ubiquitous nature of software in the 21st century there is a great and increasing demand for software developers and programmers in the US. Both Computer Science (CS) and Information Technology (IT) academicians and practitioners agree that a comprehensive strategy to improve the number and quality of 21st century CS/IT workforce is needed. This project will assist colleges and universities in producing more well-qualified software developers through the use of a cyberlearning environment that builds on and extends WReSTT-CyLE (Web-Based Repository of Software Testing Tutorials), a cyberlearning environment for software testing.

The project will: (1) investigate the impact that students' use of WReSTT-CyLE, at a cross-section of academic institutions, has on their software testing skills; (2) develop a theoretical framework of learning and engagement strategies that best support improvement of students' knowledge and skills in software courses for diverse student groups; (3) transform WReSTT-CyLE into a domain-independent cyberlearning environment for software and programming courses (SEP-CyLE) and repeat (1) above using SEP-CyLE for software courses; and (4) conduct biannual workshops to expose instructors to how SEP-CyLE may be used in the classroom to support pedagogy. The research in (1) will include mixed methods studies with both qualitative and quantitative components.